Study of Plasmon Resonances in Nanoparticles

"This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)"

Currently plasmon resonances are mostly studied numerically or experimentally by using a “trial-anderror”
approach, i.e., by probing nanoparticles with radiation of various frequencies and polarizations.
The goal of this project is to advance novel techniques for the direct analysis of plasmon resonance
frequencies and plasmon modes in nanoparticles by treating plasmon resonances as an eigen value
problem. The main emphasis of the research work on this project will be the development of novel
boundary integral equation techniques for the time-domain analysis of plasmon resonances, finding the
conditions for efficient coupling of incident radiation to specific plasmon modes, and the study of
general physical properties of plasmon resonances. It is expected that new powerful software tools will
be developed for the design of promising engineering nanostructures. It is also intended to explore the
device applications of plasmon resonances in semiconductor nanoparticles where these resonances can
be controlled through optical manipulation of the conduction electron density. This controllability is
especially promising for the development of all-optical nanotransistors. Furthermore, the research
activities on this project will include the study of applications of plasmon resonances in both thermally
assisted and all-optical magnetic recording as well as the elucidation of the electromagnetic mechanism
of surface enhanced Raman scattering (SERS).